Carbon Isotope Constraints on Benthic Carbonate Dissolution in the Eastern Equatorial Atlantic and The North Carolina Continental Margin

Pore water and benthic flux chamber concentration (ECO2) and isotopic composition (o13C) measurements will be used to investigate the factors which control the rate of carbonate dissolution at the sea floor. The major goal of this work is to document the occurrence and impact of "metabolic" carbonate dissolution, dissolution driven by benthic decomposition reactions in sediments above the calcite saturation horizon, where the bottom waters are supersaturated with respect to calcite. Pore water samples will also determine the /\14C of dissolved inorganic carbon and dissolved organic carbon. The field work for this project will be carried out during two upcoming process studies of benthic carbonate dissolution. PIs. R. Jahnke, W. Martin, and F. Sayles have been funded to carry out coordinated dissolution studies in the eastern equatorial Atlantic Ocean (Cape Verde Plateau and Sierra Leone Rise) in 1998 and on the continental margin off North Carolina in 1999. Jahnke will carry out direct flux measurements (oxygen, nutrients, alkalinity, and calcium) using benthic flux chambers, and Martin and Silks will use in situ sampling techniques to measure pore water profiles of oxygen, nutrients, alkalinity, ECO2, calcium, iron, and manganese. Samples from Jahnke's benthic flux chambers and from Sayles and Martin's in situ pore water will be analyzed in this study using del C-13. These samples will provide independent estimates of the relative contributions of decomposition-derived CO2 (o13C = -20 o/oo) and dissolution- derived CO3 -2 (o13C = 0 o/oo) to the flux of ECO2 out of the sediments. It is particularly important to make these independent isotopic estimates because alkalinity and calcium flux estimates from Jahnke's benthic flux chamber and from Sayles' and Martin's in situ pore water sample yielded conflicting results in a previous dissolution study on the Ceara Rise (western equatorial Atlantic). In that Ceara Rise s tudy, both pore water and benthic flux chamber o13C results agreed with the pore water alkalinity and calcium data (and with microelectrode profiles of pore water pH and oxygen), indicating substantial metabolic dissolution at and above the saturation horizon.